SBIR Phase I: A highly-scalable, rapid, in-season approach to tune a nitrogen model for accurate prediction of a corn crop’s remaining nitrogen need

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase I project is the development of a novel artificial intelligence technology that enables U.S. corn farmers to optimize nitrogen fertilizer applications based on field characteristics, rainfall and growing conditions. More efficient use of nitrogen fertilizer will reduce the carbon footprint of U.S. agriculture because more than 10% of the energy consumed in the U.S. agricultural sector goes toward the production of nitrogen fertilizer for corn. Because nitrogen fertilizer is a critical driver of both input costs and yield, this technology will improve the profitability of U.S. farmers by reducing input costs and maximizing corn yields. This project may enable corn production that creates less nitrogen fertilizer pollution, which threatens human health, degrades aquatic ecosystems and emits greenhouse gases that contribute to climate change. A key social element of this project is a teaching module for middle-school science students that will blend content on soil science, agronomy, and crop management with the challenges faced by U.S. corn farmers to follow best management practices.

This Small Business Innovation Research (SBIR) Phase I project seeks to demonstrate the technical feasibility of using machine learning to evaluate the amount of yellowness on the lowest corn leaves visible in images taken from low-cost cameras mounted on ground robots. Characteristic yellowness on corn leaves is a strong indicator of stress caused by insufficient nitrogen, a key nutrient. A prototype neural network model will be iteratively improved, in part by dramatically increasing the available training imagery over the course of this Phase I project. Imagery will be collected on field trials set up across several Mid-Western states. Preliminary data suggest that the extent of characteristic yellowness is an indicator of accumulated nitrogen stress that is observable only under the canopy and not via airborne sensors. A commercially available nitrogen model will be used to estimate accumulated nitrogen stress across small plots created by manipulating the amount of added nitrogen fertilizer when corn is about 1-2 feet high. Tuning will occur by adjusting key model parameters through simulation until the differences are minimized between observed and modeled accumulated nitrogen stress across a field’s small plots. Parallel software development will improve prototype codes running simulations of a leading nitrogen model, enabling rapid model tuning.